Individual Award for Excellence in Mentoring: Dr. Cheryl Schrader

HRD 05-28210
The submitted nomination package is in support of a Presidential Award for Excellence in Science, Mathematics, and Engineering Mentoring (PAESMEM) to recognize outstanding mentoring efforts or programs that enhance the participation of historically underrepresented groups in science, mathematics, and engineering.

Dr. Cheryl Schrader is currently a professor and Dean of the College of Engineering at Boise State University (2003-present), although she is nominated for her mentoring programs at the University of Texas at San Antonio (1991-2003) as well as at Boise State Univ. Dr. Schrader has demonstrated a strong personal commitment to students and faculty guidance, and through her mentoring programs students have expanded their horizons in the fields of engineering. Her record of success is most grounded in her work at UTSA, where she was the founding faculty mentor for the Society of Women Engineers (SWE) on campus, as well as for the engineering honor society. Her campus activities include involvement in a number of other student-support programs, such as the NSF Alliances for Minority Participation (LSAMP), McNair Scholars, and minority scholar programs from NASA and the Office of Naval Research (ONR). Since arriving at BSU, she has targeted mentoring female faculty, developing a partnership with Fort Lewis College (large Amer. Indian enrollment) to establish a dual-degree program in physics and engineering, and outreach to hundreds of local pre-college girls.